Preliminary Fifth Year Program Plan Budget

The Polar Ice Coring and Support Contract (PICS) is a multiyear award funded in annual increments. The tasks for the first two months at the contract's new host institution are as follows: 1. Maintain administration of the Polar Ice Coring Office (PICO); 2. Maintain the current inventory of ice coring equipment; 3. Continue the development and testing of an instrumented electromechanical drill capable of retrieving core from a fluid-filled hole; 4. Make preparations for the support of NSF-funded research projects in Antarctica during the 1988/89 field season; 5. Relocate the Polar Ice Coring Office from Lincoln, Nebraska to the University of Alaska, Fairbanks, Alaska.